Rydberg Atoms in Combined Static and Microwave Fields

This project focuses on the study of the excitation and ionization of Rydberg atoms in strong static and microwave fields. Experiments will address both the hydrogenic and the non-hydrogenic limits of the Rydberg atom system, which has unique behavior all its own. The work will be carried out in an undergraduate setting.